Sperm-Female Coevolution: Mechanisms, Models & Theoretical Implications

Sperm-female coevolution: mechanisms, models and theoretical implications.

Recent work has demonstrated that the shapes of sperm and of the female
reproductive tract evolve in concert. This pattern is attributable to a
process known as female "sperm choice," with female reproductive
tract characteristics producing a bias in patterns of paternity when
females mate with multiple males, such as biasing fertilization in favor of
longer sperm. Research proposed here will investigate (1) physiological
mechanisms of female sperm choice, (2) possible benefits to
females of having the ability to "discriminate" among sperm variants, (3)
costs and benefits to males of variation in traits that contribute to
fertilization success, and (4) implications of producing few,
large sperm for sex difference theory.

Disparity between the sexes in the size of their sex cells is believed to
be the cornerstone of all sex differences (e.g., body size, aggressiveness,
ornamentation). However, contrary to popular belief, males of all species
do not produce many tiny sperm. In fact, sperm cells are the most diverse
cell type: in nearly all animal groups, they evolve in size, shape, and
structure so rapidly that even closely related species can usually be
discriminated by their sperm. Because having the correct species-specific
sperm structure is pivotal for successful reproduction, sperm divergence
may function as an "engine of speciation." Understanding the causes of
sperm evolution is thus important to our understanding of the biological
basis of sex differences and of the process of speciation.